Coulomb Correlations and Electron-Phonon Coupling in CuprateSuperconductors

The physical properties of the high temperature cuprate superconductors are investigated on the basis of Holstein-Hubbard theoretical models which include local Coulomb correlations, antiferromagnetic spin fluctuations and electron-phonon interactions in a unified theoretical framework. Our basic approach combines classical and quantum Monte Carlo and molecular dynamics techniques, exact Lanczos electron groundstate energy and spectral function calculations, mean-field/variational and self- consistent diagrammatic techniques in a novel simulational method. The objective of this research is to study the interplay between Coulomb correlations, antiferromagnetic spin fluctuations and electron-phonon coupling in doped cuprates, including cooperative effects such as Coulomb-and spin-fluctuation-induced polaron formation, the polaronic tunneling dynamics, polaronic large- amplitude lattice displacement fluctuations, and their manifestations in the observable normal and superconducting state electronic and structural properties at finite dopant densities. The results of this research will provide us with a detailed quantitative understanding of a possible, qualitatively new low- energy physics which can arise from such cooperative effects. %%% The proposed theoretical research deals with models for the new high temperature superconductors. Detailed, highly complex, models of these materials which take into account the electronic, structural and magnetic properties and their interactions are used to predict the behavior of the materials in both the superconducting and normal states.